Postdoctoral Fellowship: MSPRF: Boundary Behavior of Elliptic-Harmonic Functions in Rough Domains

This award is made as part of the FY 2025 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Cole Jeznach is “Boundary Behavior of Elliptic-Harmonic Functions in Rough Domains”. The host institution for the fellowship is the Universitat Autonoma de Barcelona and the sponsoring scientist is Xavier Tolsa.